Two Forms of Associative Reflex Long-Term Potentiation

9220206 Durkovic How does the nervous system code the results of experience in order to produce adaptive changes in behavior? This is one of the most fascinating questions in neuroscience research. With this NSF grant, Dr. Durkovic will use sophisticated new molecular and cellular techniques to study this problem in a unique model system in the spinal cord. Traditionally, the spinal cord has not been considered to be a fruitful place to study plastic changes. Dr. Durkovic, however, has accumulated substantial evidence for a differential response to experience by spinal flexor reflexes. During the project period he will compare two different types of reflex changes in terms of their synaptic connectivity and the transmitters involved. The results of the proposed studies will aid in understanding the mechanisms underlying a family of synaptic facilitatory phenomena that occur as a result of activity-dependent phenomena throughout the nervous system. The findings will also provide basic data relevant to the understanding of plasticity in the spinal cord and the possibility of rehabilitation after injury. ***